US-Europe Symposium-Workshop: Advanced Membrane Science andTechnology

There has been a significane growth in recent years toward the development of a fundamental understanding of the physical processes which control transport through polymeric membranes, composites and packaging materials. Advances in these areas are critical to a number of separation processes, in conventional inorganic processing, in biotechnology and in medicine, among others. Correspondingly, the success or the failure of membrane processes is quite predictably related to the material from which the membrane is made and the manner in which the membrane structures are made. This funding is provided as a partial support for an international conference to discuss the recent advances in these areas and to project the long-range research needs. Among other things, the following issues will be addressed: o Fundamentals of transport phenomena in membrane materials, o Molecular criteria for the preparation of improved membranes and barrier structures, o New membrane separation processes and barrier film applications, and o Membranes in Biotechnology and Biomedicine Funding at the level of $15,000 ($6,000 from Separation and Purification Processes, $6,000 from Biotechnology, $3,000 from the Division of International Programs) is recommended.